Mass Dependent Effects in Correlated Motion of Massive Coulomb Interacting Particles: Quantitative Manifestations of Relativistic Interactions in Multi-electron Photo-processes

This is a combined project in atomic photoionization and ion-molecule scattering. In the first part of the project the group will study the angular momentum partitioning of the electronic components of the Ar atom when it is photoionized by circularly polarized synchrotron radiation. By determining the spin components of the residual excited ion and free electron, the group will be able to quantify the importance of relativistic, spin-orbit interactions in the photo process. In the second part of the project the group will study the highly correlated motion of three massive Coulomb interacting particles when the total energy of the three particles is a few eV above the continuum. The response of the three-body motion to a change in mass dependent variables of momentum and energy will provide information regarding the important parameter of energy sharing in three body systems.